Southwestern Center for Arithmetical Algebraic Geometry

The Southwestern Center for Arithmetical Algebraic Geometry was founded in 1997 with support from a Group Infrastructure Grant from the National Science Foundation. The organizing premise was that by
creatively deploying the current concentration of research strength in Arithmetical Algebraic Geometry in the Southwest, we could recreate, outside of the traditional centers, some of the best aspects of the best programs for the benefit of our own research and that of students and post-docs, both locally and nationally.

Our premise that it is possible to recreate in concentrated form the virtues of the traditional centers has been amply demonstrated to be correct. The current project will build on this base and will contribute to research and education in a wider area of mathematics and across the country.

The principal goals of the project are: to spread our model of a concentrated, interactive, and highly collaborative center to other areas of mathematics and other areas of the country; to develop and distribute high-quality reusable components from the Arizona Winter School and our distinguished lecture series (such as lecture notes, project descriptions, and video footage of lectures); and to continue to serve our constituency of advanced graduate students and post-docs in arithmetical algebraic geometry.